Knots in Poland III; the conference on Knot Theory and its Ramifications

Abstract

Award: DMS-1034753
Principal Investigator: Jozef H. Przytycki, Mikhail G. Khovanov

This proposal asks for financial support for US based
participants, for a 3-week long summer program devoted to Knot
Theory: Knots in Poland III: conference on Knot Theory and its
Ramifications. It will be a conference interspersed with
specialized workshops and tutorials. It will be third
conference in the series of large, very successful international
conferences ``Knots in Poland". The conferences will take place
in Warsaw July 18-25 and in Banach Center in Bedlewo July
25-August 4, 2010. Specifically, we propose to support about 15
graduate students and 10 mathematicians without grant. As part
of the conference we will have a series of 3 talks by Tom Mrowka
on his proof that Khovanov homology can be understood as a page
in a spectral sequence converging to a version of Instanton
Floer homology. A consequence of this is that Khovanov homology
detects the unknot. Knots have fascinated people from the dawn
of the human history. Much of the early knot theory was
motivated by physics and chemistry (e.g. Kelvin theory of vortex
atoms). The fundamental problem in knot theory is to be able to
distinguish non-equivalent knots. There have been exciting new
developments in the area of Knot Theory in recent years. From
the Jones, Homflypt, and Kauffman polynomials, through quantum
invariants of 3-manifolds, Topological Quantum Field Theories,
to relations with gauge theory type invariants in 4-dimensional
topology (Donaldson, Witten, etc). More recently, Khovanov
introduced homology theory of links which categorifies the Jones
polynomial (a chain complex is build on the Kauffman model of
the Jones polynomial). Soon after, Ozsvath and Szabo developed
Heegaard-Floer homology, that lifts the Alexander polynomial.
These two significantly different theories are closely related
and the dependencies are the object of intensive study. One can
mention here Khovanov-Rozansky categorification of Homflypt
polynomial, categorification of the Kauffman bracket skein
module of some 3-dimensional manifolds, and the result of
T.Mrowka that Khovanov homology detects the unknot.

The subject has significant applications and relations with
biology, physics, chemistry and the theory of computation. We
feel that a conference on this subject is highly appropriate at
this time, and we strive to be in the frontier of new development
in knot theory and its ramifications. The project has broader
impact in several aspects. Knots in Poland conference brings
together from all over the word, third-world countries, former
Soviet Union, minorities, women, and provides an opportunity for
researchers and students to share their latest ideas and to
collaborate with each other. The knowledge obtained on this
occasion will be disseminated by participants throughout the
world. Distinguished researchers (including about 10 woman) will
deliver plenary talks surveying the state of knowledge related to
Knot Theory and its Ramifications. PhD students and fresh PhD's
will be encouraged to attend. We expect to publish conference
proceedings (as we did in the past) containing cutting-edge
research papers and lecture notes which will be suitable for
research mathematicians, students and readers with background in
other exact sciences, including biology, chemistry, computer
science, and physics.

Conference Web Page:
http://www.mimuw.edu.pl/~traczyk/knotpol2010/<http://www.mimuw.edu.pl/%7Etraczyk/knotpol2010/>